CIRPAS Twin Otter Aircraft Support of the Physics of Stratocumulus Top (POST) Experiment

The Naval Postgraduate School/Center for Interdisciplinary Remotely-Piloted Aircraft Studies (CIRPAS) Twin Otter research aircraft will be instrumented to support the NSF funded "Collaborative Research: Physics of Stratocumulus Top (POST)" field experiment in July and August 2008. The instrumented platform will study entrainment in cloud stratus cloud layers, which is important to the physical and radiative properties of these cloud types. The airborne facility is a National Science Foundation national facility for the University-National Oceanographic Laboratory System (UNOLS), and it is the most cost effective and appropriate platform for this research.